Track 1, GK-12: Improvement of Science Education in Vocational Technical High Schools through Collaborative Learning and Coteaching

This is a Track 1 project developed by the University of Delaware to link nine Fellows with nine teachers in a local vocational technical high schools district to develop a model program for STEM graduate students. This project supports several disciplines: biology, computer sciences, chemistry and biochemistry, engineering, earth sciences, physics and astronomy. The main goal is to establish a learning community in the state of Delaware to address critical issues in science education. The project has three main components: 1) problem-based learning in science; 2) co-teaching and lesson study to provide Fellows with the experience of teaching sciences and 3) quantitative reasoning skills in the sciences for middle and high school students.